AMS Journals to Developing Countries

The American Meteorological Society will provide several scientific journals to less developed countries. Approximately, 123 organizations in developing countries will receive these journals. It is important that these journals are disseminated to continue to enhance the knowledge of those scientists and professionals dwelling in these countries. The journals will allow them to be abreast with the latest scientific endeavors and discoveries. These countries can make full use of the many advances the science can offer and participate in the dialogue now underway internationally on climate and climate change.